Wastewater Purification Via Impeller Fluidized MicroemulsionLiquid Membranes

The application of impeller fluidized microemulsion liquid membranes to the separation of contaminants such as heavy metals and organics from wastewater is proposed. The impeller-fluidizer developed by Helipump Corporation is a self-pumping, durable, and inexpensive fluidizer design which provides higher mass transfer and throughput rates than typical fluidizers. Liquid membranes have been employed previously for the separation of metals (copper, uranium, cobalt, nickel and zinc), organics (acetic acid, phenol), and, recently, amino acids (phenylalanine) from aqueous solution. We proposed to employ a liquid membrane in an impeller fluidizer to purify wastewater of prototypical contaminants (phenol, ammonia, copper and mercury). In addition, microemulsions will be used instead of coarse emulsions in formulating the liquid membrane due to their inherent advantages. The successful application of the technique will result in reduced wastewater treatment costs, while increasing production capacity. This project combines two new technologies in the treatment of streams of process water. The first of these technologies is that of liquid membranes. In the last decade is has been found that dissolved metals and low molecular weight organic chemicals can be removed from water by dispersing an emulsion into the water. The emulsion itself is made up of a solution of chemicals in water, which has been dispersed into an oil. The oil is immiscible in water. This emulsion is stablized by surface active molecules called surfactants, which can be selected to improve the separation. When the emulsion is then dispersed into the process water, the oil phase of the emulsion forms a liquid membrane around the solution of chemicals inside the membrane. The solution inside the liquid membrane is designed so that as the ions or molecules which are to be removed from the process water diffuse across the liquid membrane, they react with the components of the solution to form molecules which are insoluble in the oil of the membrane. This traps the molecules on the inside of the liquid membrane. By this manner a very high concentration of the molecules being removed from the process water can be obtained inside the droplets. In this project a more stable type of emulsion with smaller size droplets inside the liquid membrane will be used. The dispersion of the emulsion in the process water will be accomplished by means of a new fluidizer commercialized by the Helipump Corporation.